1989 National Survey of Natural and Social Scientists and Engineers

In 1989 the Bureau of the Census will conduct the National Survey of Natural and Social Scientists and Engineers, the fourth in this series of surveys in the 1980's on the Nation's experienced scientists and engineers. These surveys collect demographic, educational, employment and geographic data on a cohort of scientists and engineers who were originally identified in the 1980 Census of Population. This information allows NSF to examine levels, changes, and trends, particularly in the employment experience, of a large and important segment of the science and engineering labor force. NSF, in its role as principal Federal agency on scientific and engineering activities, is charged with maintaining an up-to- date data base on the scientific and technical personnel in this country. That data base, the Scientific and Technical Personnel Data System, is comprised of data from this survey, the Survey of Recent Science and Engineering Graduates, and the Survey of Doctorate Recipients. Information from these three sources are combined to produce national estimates of the numbers and characteristics of the Nation's scientific and engineering labor force.